Boundary Phenomena in Quantum and Classical Systems

9705304 Meyerovich This project consists of two components. One deals with the physics of spin polarized quantum systems, specifically the spin dynamics. Here the anomalous zero-temperature spin attenuation in polarized Fermi liquids, which is now well established both experimentally and theoretically, nevertheless needs to be brought under the umbrella of a general theory of Fermi liquids. There are plans to study the nonlinear phenomena, e.g. close to the Castaing instability. In the second component, the PI plans to develop a general framework for a study of boundary roughness effects. Much of this work is an extensive development of a recent breakthrough formalism by the PI and his coworkers where the boundary roughness is mathematically expressed in terms of bulk distortions. In details, this research hopes to develop a description of particle flow at very high Knudsen numbers and an exploration of random boundary effects in microscopic models of friction. %%% A renewal to a distinguished mid-career PI, this grant supports work on two different projects. In the first part the PI will continue his well-recognized study of highly polarized systems, equivalent to materials in magnetic fields of the order of hundreds of Tesla. the second group of problems involve random/rough surfaces and boundaries. The PI has recently developed a mathematical formalism, amounting to a major breakthrough in the description of a wide range of problems. The possible areas of inpact are particle flow at very high speeds and low densities and/or models for understanding material friction. ***